Support for Second Annual PAESMEM Conference

The University of Kentucky is hosting a conference to bring together the recipients of Presidential Awards for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM). As part of the conference format, they will also include as participants those mentored by the PAESMEM awardees. The conference has two main themes: (1) To continue the efforts to organize PAESMEM recipients as a national resource for mentoring; and (2) To highlight success in mentoring, especially that involving postdoctoral, graduate, undergraduate, or high school student research.